Electronic Processing Techniques for Scanning Optical Microscopy

The purpose of this research is to investigate new techniques for scanning optical microscopy. Specifically, this research involves a Type II mechanically scanned optical microscope and a separate electronically scanned Type II microscope using a Bragg cell for scanning. The latter device gives direct measurements of optical phase and amplitude. Fourier transform techniques will be used to improve the transverse resolution of the microscope and to measure the widths of films in the low submicron range while measuring film thicknesses with accuracies targeted at 5-10 nm. If successful, this microscope would provide an order of magnitude improvement in the capability of scanning optical microscopy, and it could contribute significantly to materials research and to research and quality control in microelectronic devices and emerging micromechanical devices.